A Faculty Workshop on PC-Controlled Undergraduate LaboratoryExperiments

This workshop consists of two ten-day sessions for about 16 participants. It will introduce teachers of undergraduate electrical engineering laboratories to the computerized workstation concept. Using current technology in instrumentation, hardware and software, the workshop will explore the full range of capabilities that are now available for academic laboratories at reasonable cost. A strong emphasis will be put on creativity in designing laboratories, and on encouraging the participants to be creative in turn. To achieve these objectives, the workshop will provide a balanced mix of theory, discussion and design in a laboratory environment. The laboratory facilities will be available around the clock. A maximum amount of sharing among the participants will be encouraged through open discussion periods, and a commitment to integrate new ideas into the curriculum of the home institution is expected. In addition to the NSF funds, participants' institutions will contribute about 15% in travel costs toward the cost of the project.